Learning Mappings Between Spatial Dimensions

Nearly all perceptual judgments can be reached by the use of more than one sensory system. For instance, the location of an object can be determined visually, or alternatively, it can be determined without vision by using feedback, known as proprioceptive information, from the arm and hand groping for the object. Coordination of information from these different sources is necessary in order for people to perceive a coherent world. This research will lead to a much more complete understanding of that integration by determining how new mappings are acquired between spatial dimensions defined in different sensory systems. The specific dimensions which the research will use are spatial positions proceeding from left to right localized visually and those same positions localized proprioceptively. The research will employ a new technique, using a variable prism under computer control and a single light-emitting diode worn on the finger; this technique will allow the experimenter to divide the continuum of visual space into discrete locations and manipulate each location individually. The research will address two questions: First, is there a specific mathematical function that describes the relation between the dimensions, so that the process of learning a new mapping can be described by changing the values of the parameters of the function? Or does learning proceed by the formation of a list of independent associations between individual locations? Second, what are the constraints on this learning process? For example, is it constrained such that only linear relations can be learned? Two complementary strategies will address these issues. The first is the assessment of the influence of incomplete information. Only a small subset of a mapping, consisting of only a few new pairs of visual-proprioceptive locations, will be presented. The type of interpolation and extrapolation that occurs to untrained locations should reveal the internal constraints imposed by the system. The second is the reaction to the assessment of complete information. Presentation of a variety of complete mappings will reveal what mappings, if any, are unlearnable; the type of deviation from the imposed mapping will also reveal internal structure.